Dynamical systems theory and singular perturbation analysis for patterns, bubbles, and chemical reduction methods

Kaper
0306523
This project concerns systems with multiple length and time
scales, with the goals of analyzing recent experiments, of
improving computational methods, and of establishing new
mathematical theory for such systems. First, in the area of
chemical patterns with multiple length scales, the
recently-discovered phenomena of self-replicating spots and
pulses has posed new challenges for modeling and for stability
analysis of solutions of partial differential equations. The
investigator and collaborators build on their analysis of the
dynamics, time scales, and mechanisms responsible for
self-replication to study the underlying bifurcation hierarchies
that organize the self-replication regime, to further examine the
zero-pole cancellation phenomenon in the nonlocal eigenvalue
problem stability analysis, to extend the renormalization group
technique to establish the fully-nonlinear stability of pulses,
and to develop extensions to systems with more than two length
scales. Second, in the increasingly-important area of reduction
methods for large systems of chemical reactions with multiple
time scales, the validity and accuracy of certain methods are
analyzed, with special focus on the computational singular
perturbation method of Lam and Goussis. Third, the investigator
analyzes the Oya-Vallochi model of subsurface bioremediation.
Bioremediation is a process in which microorganisms, in the
presence of electron acceptors, degrade environmentally-harmful
organic compounds. The investigator studies traveling waves of
biomass activity and advection versus dispersion. Fourth, he
conducts fundamental studies of nonspherical deformations of gas
bubbles in Newtonian fluids. Finally, a challenging open problem
concerning the existence of self-similar, blow-up solutions of
the nonlinear Schroedinger equation in spatial dimensions between
two and four is attempted.
This project concerns mathematics for problems of
significant current interest in biology, chemistry, engineering,
and physics, which exhibit both fast and slow dynamical
processes. First, with collaborators and a doctoral student, the
investigator analyzes computational methods used to simulate
large, complex systems of reactions in biochemistry, combustion,
and air pollution engineering. These processes, such as the
production of certain proteins, the burning of natural gas, and
the formation of nitrous oxides in the atmosphere, typically
involve a few hundred species, each of which participates in
several reactions, with the reaction times ranging from
nanoseconds to milliseconds, even to minutes. Methods that reduce
the system complexity, while retaining a desired accuracy, are
critical for modeling these processes. The investigator aims to
show that there is a highly accurate method that can be used to
improve the accuracy of other widely-used methods, which are
embedded in major computer codes. Second, the investigator and a
doctoral student study mathematical models of bioremediation, in
which microorganisms are used to degrade environmentally-harmful
organic compounds. Mathematics provides an advantageous approach
to determine important quantities, such as the wave speed with
which the biologically-active zone propagates through a wet soil
column and how this speed depends on the many physical
parameters. Third, fundamental research is conducted on the
dynamics of gas bubbles in water. Deformations of spherical
bubbles lead to oscillations on time scales much shorter than
that on which the spherical mode itself oscillates, and the main
goal is to model the nonlinear transfer of energy between the
spherical and nonspherical modes that can lead to bubble
cavitation and the attendant production of underwater sound by
turbine blades, for example. Finally, the investigator develops
further theory for self-replicating chemical patterns and for a
prototypical equation that governs nonlinear wave propagation.